Geophysical Models: Regularity, Justification and Long-time Behavior

Titi 9704632 The investigator and his colleague study the validity of approximations to complex geophysical fluid problems. The basic problem faced in geophysical fluid dynamics is that a mathematical description based only on fundamental physical principles, which will be called the ``Primitive Equations,'' is often prohibitively expensive computationally, and hard to study analytically. More manageable approximate models, which should represent the behavior of the physical system on time and length scales of interest, are therefore used for making predictions about the real world. Naturally, the question of validity of such simpler models arises. The first theme of this project is the justification of two prototypical models of shallow water, called the "Lake" and the "Great Lake" equations, which describe the long-time motion of an inviscid, incompressible fluid contained in a shallow basin with a slowly spatially varying bottom, a free upper surface and vertical side walls, under the influence of gravity and in the limit of small characteristic velocities and very small surface amplitude. It is expected that the shallow water approximation can be justified only for limited intervals of time, the length of which can be estimated. In order to validate the long time behavior of fluid dynamical models, one has to compare the statistical properties of their attracting invariant sets, rather than compare individual solutions. To do so, it is necessary to focus on models that include some mechanism of dissipation. The second theme of this project concerns damping as a possible ``smoothing'' mechanism---a mechanism that is weaker than the viscosity normally considered. Technically, the question is whether linear damping is sufficient to assert existence of a smooth or even analytic global attractor. This is first investigated for the nonlinear Schrodinger equation. Although not a geophysical model, it is an important prototype for which partial result s are already available. Next, the Stommel-Charney model for the Gulf stream is considered, where the Coriolis force is expected to play an important role as a second regularization mechanism. Lastly, a model for Benard convection in a porous medium is investigated. Here the temperature is diffusive while the fluid velocity is only linearly damped. Computer predictions of phenomena on large or global scales, for example weather or climate forecasts, need to compromise between accuracy of the predictions and available computing resources. It is therefore a major scientific concern to devise approximation schemes and models that are efficient as well as trustworthy. The first aspect of this project concerns the validity of models of shallow water. Oceans, for example, are shallow in the sense that they are much wider than they are deep. The shallowness is one of the features that are usually exploited to obtain less complex models. The project aims at the justification of this procedure in the context of two examples that are simple enough to allow detailed study, and yet contain most of the difficulties found in more generic situations. The second aspect of the project concerns the long time behavior of models in the presence of weak damping. When a physical system is modeled for long periods of time, the balance of energy input (``driving'') and energy loss (``damping'') becomes very important. The project focuses on a particular mathematical manifestation of damping, the so-called weak damping, and in particular on how it influences the model for large times.